Oceanographic Instrumentation 2011

A request is made to fund additional and back-up instrumentation on the R/V Wecoma, a 185’ general purpose research vessel operated by Oregon State University as part of the University-National Oceanographic Laboratory System research fleet. The vessel is owned by the National Science Foundation. The request includes:

1) GPS Based Network Time Server
2) Multicorer Refurbishment
3) Acoustic Testing on R/V WECOMA
4) Double-Rate Pingers

Broader Impacts:
The principal impact of the present proposal is under criterion two, providing infrastructure support for scientists to use the vessel and its shared-use instrumentation in support of their NSF-funded oceanographic research projects (which individually undergo separate review by the relevant research program of NSF). The acquisition, maintenance and operation of shared-use instrumentation allows NSF-funded researchers from any US university or lab access to working, calibrated instruments for their research, reducing the cost of that research, and expanding the base of potential researcher.